Oceanographic Technical Services, 2003-2005, R/V WEATHERBIRD II

0331762
Bates
This 3-year award to Bermuda Biological Station for Research (BBSR) provides support for technical services during NSF-funded programs on R/V Weatherbird II, a 115' general purpose research vessel operated by BBSR as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. BBSR will provide one shipboard technician on each cruise of R/V Weatherbird II to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.
***